Finite Generatedness of Algebras and Flips

This award supports a project of Professor Shokurov. The project
is focused on the finite generatedness of algebras--
a fundamental problem of algebra. The work proposed is
to resolve the problem in a certain important class of
algebras (named (FGA)) with the aim to finish the proof
of the existence of log flips in any dimension
whenever the Log Minimal Model Program (LMMP)
and, in particular, the log terminations hold in
the lower dimensions. To apply this inductive step
to the LMMP in dimensions higher than 4
the principal investigator intends to finish the log termination
for 4-folds. This gives the 5-fold log flips, and establishes
the LMMP in dimension 4. A concrete application of this technique
will be done by his student, Jihun Park, in his study of birational
geometry of Del Pezzo fibre spaces, with a view to their existence,
uniqueness of their certain models, and to the birational classification.

This is research in the field of algebra with methods and applications
in algebraic geometry. The finite generatedness corresponds to
completeness in geometry, and effectiveness from the computational point
of view. Algebra and algebraic geometry are very old, traditional areas of
modern mathematics, but which have had a revolutionary flowering in
the past century. In its origin, algebraic geometry
treated figures that could be defined in the plane by the simplest
equations, namely polynomials, or be given in the 3-space by the simplest
geometric constructions, e. g., conic sections.
Algebra is about these equations. Both fields interacts with most of
branches of mathematics, e.g., analysis, topology and
mathematical physics, with applications in those
fields as well as in number theory, physics, theoretical computer science,
and robotics.